Mobile Manipulation

Abstract

IIS-9900322
Mason, Metthew
Carnegie Mellon University
$102,913 - 12 mos.

Mobile Manipulation

This is the first year funding of a three year continuing award. The goal of this research is to explore the boundary between robotic manipulation and robotic locomotion. The initial focus is on a simple robot called the Mobipulator which manipulates paper and other common desktop objects using its wheels both for locomotion and manipulation.
Some of the goals are to refine and test variations on the design, to explore theoretical kinematic and dynamic properties of the device, and to develop suitable planning and control techniques.